EAGER: Digitization and Virtual Restoration of Deteriorating Photographic Negatives

Abstract

IIS - 1008285
Digitization and Virtual Restoration of Deteriorating Photographic Materials
Eastern Kentucky University
Landon, George V.

The goal of this project is to develop a novel method to digitize and virtually restore rapidly deteriorating cellulose acetate film negatives. Working in close collaboration with the University of Kentucky’s Center for Visualization, the Principle Investigator at this primarily undergraduate institution will conduct research in to develop advanced computational models for deteriorating images on unstable and disintegrating media. A successful solution will produce a framework to non-destructively acquire and preserve vast collections of photographic records created from the early 1900s to the 1950s. At the same time, it will provide economic alternatives to memory institutions and research institutions that rely upon the content of the photographs for a variety of scholarly purposes.